Mathematical Sciences: Recursion Theory and Set Theory

9505153 Martin Martin will work in set theory and descriptive set theory, especially determinacy hypotheses, and his first goal is to complete his long-awaited research monograph on proofs of determinacy from large cardinal axioms. Steel will also work generally in set theory and descriptive set theory, and more specifically on the construction and study of canonical, inner models of ZFC that satisfy specified large cardinal or determinacy assumptions. Moschovakis will work on fixpoint recursion and its applications to the theory of computation, including the mathematical modeling of recursive algorithms, the logic of recursive definitions, and the construction of canonical solutions for recursive equations in non-deterministic and concurrent settings. The Principal Investigators of this Grant have been among the key contributors to the reshaping of the classical, set-theoretic foundations of mathematics during the last twenty-five years, with the introduction and study of new hypotheses about sets that have made it possible to solve many long-standing, open problems about the real numbers. Martin and Steel will continue working on this fundamental program, seeking to extend it and to delineate its limitations. Moschovakis changed interests about ten years ago, and his current research program aims to provide a rigorous, mathematical foundation for computer science. One of the main, ultimate aims of his work is to construct a "logic of programs" that will be useful in the development and verification of computing systems. ***